Mathematical Sciences: Motives and Algebraic Cycles

This award supports work on motives and algebraic cycles. One of the principal investigators will work on motivic cohomology; a non-archimedean generalization of the Riemann-Roch type theorem proved by Gillet and Soule; and a generalization of Iwasawa theory to cycles and motives. The other principal investigator will work on the existence of higher logarithms using families of certain linear configurations over the Grassmannians, as well as explore the relationship between the Grassmannian complex and the K-groups of the ground field. This is research in the field of algebraic geometry, one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origins, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays, the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields as well as in theoretical computer science and robotics.